Mathematical Sciences: Block Travel Grant for 1994 IAMP Meeting

9322707 Ruskai This project is a block travel grant for scientists to travel to XI-th International Congress on Mathematical Physics (ICMP) sponsored by the International Association of Mathematical Physics (IAMP) to be held in Paris, France on 18-22 July, 1994. These meetings afford a unique opportunity for mathematical physicists to see the latest developments in the wide range of topics under the umbrella of mathematical physics. A major portion of the funds go to support participation of new scientists and researchers from underrpresented groups. The project will enable US scientists to remain at the cutting edge of research in mathematical physics. ***